RUI: Interstellar Matter Near the Pleiades: Probing the Cloud-Cluster Interaction with Interstellar Absorption Lines

Recent research has demonstrated that the nebulosity surrounding the familiar Pleiades star cluster results from an accidental encounter between the cluster and an interstellar cloud. Data from the Infrared Astronomical Satellite have revealed the wake of the Pleiades in the ambient interstellar medium, and have indicated the existence of a bow shock where heated gas near the cluster compresses the upstream material. Dr. White's research has the following aims: to trace the motions of the interstellar gas observed toward the Pleiades, particularly in the cluster-cloud interaction region; to explore the physical conditions that prevail in the gas and infer the spatial relationships among the stars and the nearby gas; to characterize interstellar processes in the cluster, particularly the dominant process of gas heating by photoelectrons emitted from dust grains and the poorly understood formation process of the CH+ molecule. The means to these ends will be analysis of interstellar absorption lines in high resolution, high sensitivity spectra of cluster and background stars to be obtained at Kitt Peak National Observatory. This award is made under the Research in Undergraduate Institutions (RUI) program.